Collaborative Research: CubeSat: High-Cadence Measurement of Solar Flare Hard X-rays

The IMpulsive Phase Rapid Energetic Solar Spectrometer (IMPRESS) experiment is a CubeSat science mission to study hard X-ray emission from solar flares. IMPRESS will develop a new CubeSat-based capability to observe a wide range of solar flares (from microflares to X class flares) with high time and energy resolutions. These new observations of solar hard X-ray emissions will address outstanding problems in high-energy solar physics and advance our scientific understanding of solar flares, which play an important role in the development of space weather in the near-Earth environment. The project will also support integration of research and education to develop a knowledgeable STEM workforce. The project will support an early career female PI and provide her an opportunity to lead a CubeSat mission. This is important because it is a step towards developing senior leadership. Women are under-represented at senior leadership positions in geospace sciences.

The Impulsive Phase Rapid Energetic Solar Spectrometer (IMPRESS) is a solar hard X-ray (HXR) spectrometer based on proven instrument concepts and carried on a 3U CubeSat platform. IMPRESS will perform HXR spectroscopy of solar flares in the rising phase of Solar Cycle 25. The target launch date is late 2021 into a Low Earth Orbit (LEO) with an inclination angle less than 60° and altitudes greater than 450 km. The scientific objectives of the IMPRESS mission are (1) to investigate flare electron acceleration timescales by measuring short (<2 second) spikes in HXR time profiles; (2) to investigate electron beaming in solar flares via stereoscopic HXR directivity measurements; (3) in collaboration with new space-based instruments, to provide a complete assessment of flare-accelerated electron distributions from thermal to non-thermal energies; (4) to develop and demonstrate a high-energy radiation detector that can measure a vast range of brightnesses in solar flares, precipitating electron microbursts, and other astrophysical bursts without pileup or saturation. This project will provide training and education opportunities for students at all levels (freshman through graduate students). The project will also engage students from a local community college CubeSat design and development phase. Solar activity is the ultimate source of all space weather and IMPRESS will study the fundamental particle acceleration that occurs in flares as a way to better understand the processes which impact earth and the geospace environment.